SSC: "Roanoke River Valley Consortium Summer Science Camp (R2VCS2C)"

The Roanoke River Valley Consortium which consist of five predominately minority school systems located in rural poverty- stricken Northern North Carolina in partnership with North Carolina Central University (HBCU) proposes to offer a comprehensive camp program. The goals are to create a cohort of students (150 eight grade African Americans over three years) and provide them a foundation for lifelong interest in science and mathematics and to encourage them to consider Science/Mathematics/Engineering/ Technology (SMET) as possible career choices. The strategies to be employed consist of a four week residential camp and an innovative academic year follow-up program. The residential camp will focus on: the physical science discipline infused with mathematics and integrated with life and earth science; career exploration and experiments in science laboratory with computer application. Field trips will reinforce classroom and lab work. Innovative academic year follow-up activities will consist of multi-year activities for parents for their support and to increase students' confidence in their academic abilities; camp-in field trip at North Carolina Life and Science Museum; after school monthly meetings with master teacher for career counseling and ongoing research; a series of six Saturday Seminars with the mentor/assistant and master teacher throughout the year for academic follow-up and assistance with research; a mentorship program for "mentee" shadowing in the workplace; the publication of biannual newsletter; and, the establishment of R2VCS2C alumni group for continued career counseling and involvement. The significance of implementing R2VCS2C will show students' increase in: the science and mathematics "pipeline" of well-prepared minority high school graduates continuation in school; choosing to study more math and science; academic performance in the sciences and mathematics; and, an increase in the "pool" of potential scientists and mathematicians for th e workforce. ***